A Series of Nested GC-MS Applications in the Introductory Chemistry Sequence

This project designs a set of nested or interrelated experiments employing gas chromatography-mass spectrometry (GC-MS) as a technique that exposes students to the use of this versatile instrument at ever-increasing levels of sophistication. Because the intent is to incorporate GC-MS in the introductory general and organic chemistry laboratory sequences, an instrument-intensive research-like experience has been designed for each laboratory sequence around an interdisciplinary theme: Environmental Chemistry for the general chemistry laboratory (analysis of an artificial "gasoline" mixture followed by water and soil analyses contaminated with gasoline and/or pesticides) and Plant Assays for the organic chemistry laboratory (a fatty acid, methyl ester analysis of a plant extract using standards synthesized by the students and synthesis, identification, and characterization of a series of plant growth hormones). The assumption in designing each project in this manner is that students gain sufficient mastery in GC-MS by a sequential series of applications and that exposure to modern instrumentation, especially in a hands-on format, is highly desirable. The thematic basis for the projects creates links with the related disciplines of geosciences and biology. Many aspiring premeds take biology, if not geology courses, so the bridging laboratory concept helps those students see the relevance of their laboratory work from several disciplinary perspectives. In both the general and organic chemistry laboratory sequences, the organizational paradigm of "Synthesis, Structure, and Identification" is enhanced by the integration of the GC-MS with its dual capability of separation and identification.